Elastic and Anelastic Properties of Molten and Partially Molten Iron Alloys

9406790 Manghnani The PIs will perform an experimental investigation of the elastic and anelastic properties of molten and partially molten Fe-Ni-S and Fe-Ni-Si alloys that are relevant to the Earth's outer core. From the values of VP and QP in these systems, bulk modulus and viscosity will be calculated. The results should provide useful criteria with which to interpret existing data on shocked melts of pure Fe and Fe alloys, as well as seismological data on the outer core. ****